Applications of Many-Body Theory

9725913 Anderson This is a renewal grant to support theoretical research on high-temperature superconductivity and related phenomena. The research has a two-fold thrust: (1) to exploit the theoretical framework established during the last grant period both in terms of explanation of the complex array of experimental data available and in terms of broadening, deepening and making more detailed the theoretical basis for this framework. (2) Using the cuprates as a paradigm, to look for comparable breakdowns of conventional theory in other systems including organic superconductors, spin ladder compounds and mixed-valence electron systems. %%% This is a renewal grant to support theoretical research on high-temperature superconductivity and related phenomena. The research has a two-fold thrust: (1) to exploit the theoretical framework established during the last grant period both in terms of explanation of the complex array of experimental data available and in terms of broadening, deepening and making more detailed the theoretical basis for this framework. (2) Using the cuprates as a paradigm, to look for comparable breakdowns of conventional theory in other systems including organic superconductors, spin ladder compounds and mixed-valence electron systems. ***